Biofunctional Gels for Tissue Engineering in the Peripheral Nerve

9409455 Hubbell This proposal is on research to develop biomaterials for tissue engineering of the peripheral nerve. These biomaterials are comprised of fibrin gels containing synthetic matrix attachment peptides to provide both neuro-conductive and neuro-inductive stimuli in order to enhance nerve regeneration. This research has three specific aims which are: (1) to characterize the stability of the immobilization of the peptides incorporated into fibrin; (2) to determine the bioactivity of the incorporated peptides; and (3) to examine the effect of peptide incorporation on in vivo peripheral nerve generation. This research could have impact on the treatment of human neurological disease. ***